US-Mexico Program: Developing a Collaborative Educational/Research Program for Remote Sensing Using Precision Spectropolarimetry

OISE 0753239- Kuhn, Jeffrey R. University of Hawaii
Developing a Collaborative Educational/Research Program for Remote Sensing Using Precision Spectropolarimetry

This award provides travel and participant support for the U.S. PI, Dr. Jeffrey R. Kuhn, Associate Director, Institute for Astronomy, Honolulu, Hawaii, Mr. Dave Harrington, key polarimetry student researcher, another undergraduate student and Mr. JD Armstrong, Institute for Astronomy -Maui scientist, Advanced Education Programs, to undertake a planning visit to Cuernavaca, Mexico. They will meet with the Mexican PI, Dr. Gloria Koenigsberger of the Universidad Nacional Autonoma de Mexico (UNAM), to formulate and initialize a program of collaboration in Spectropolarimetry that will allow U.S. and Mexican students to obtain and analyze remote sensing astronomical spectropolarimetry data.

The proposed planning visits will enable the U.S. PI to develop a new, mutually beneficial collaboration with Mexico. All participants have complementary expertise and qualifications. Dr. Koenigsberger and her group in Mexico have theoretical and observational expertise which will support the collaboration and complements current research into stellar spectropolarimetry by the Hawaiian group. This research area deals with an increasingly important diagnostic technique and has a strong focus on training students.